Nondestructive Evaluation for Civil Structures

In order to determine the existing conditions, strength and safety of structures, nondestructive evaluation (NDE) techniques are required for field examinations. There are many types of NDE equipment available with varying precision, convenience of use, limitations in application, and economy of use. The objective of this project is to conduct a combined conference and workshop in order to assimilate existing information on the current uses of nondestructive evaluation and to project plans for subsequent research activities. Researcher is qualified to perform this project. Project is recommended for an award. This is a one time award.